Enhancing a National Network by Developing Leadership Skillsin Outstanding Biology Teachers for the Teaching of Human Genetics Knowledge and Bioethical Decision-Making

This four-week project offered at Ball State University will give 40 outstanding biology teachers from throughout the nation the opportunity to update their knowledge of human genetics, bioethical decision-making skills and teaching methodologies. They will thus be qualified to become part of the National Network to Implement Human Genetics and Bioethical Decision- Making in our Nation's Secondary Schools. With this project, this Network will be expanded to include members from the 20 states not currently represented, making it a nationwide entity. The summer workshop will be followed by an academic year component designed to assist participants in achieving project goals.